A College/Community-Operated Young Scholars Program in Environmental Toxicology for High Ability/High Potential Students

9552934 Lester Kennesaw State College will initiate a six-week, summer commuter, Young Scholars project in Interdisciplinary science (biology, chemistry and biochemistry) for 24 high ability and high potential high school students. The program will provide students in grades 11th and 12th with academically enriching activities and exciting research experiences designed to lead them to a better understanding of the career options in science, mathematics, and engineering (SEM) and the preparation necessary to be successful in achieving these careers. The activities include classroom lectures and discussions, field trips, seminars, and lab/research activities to build academic strength.